SGER: The Presage Database for Structural Genomics

Project Summary

Structural Genomics efforts aim to ultimately provide an experimental structure or good theoretical model of every tractable protein encoded by all sequenced genomes. Major efforts in this direction are now beginning, and the PRESAGE database aids coordination among groups and dissemination of results. PRESAGE records experimental structure determination underway (experimental annotations) and structural predictions & models (prediction annotations). As such, it provides the potential for a mechanism for coordination among different researchers without requiring centralization. It also aids in the broad dissemination of both experimental and computational structural genomics to a broad audience of biologists. This project will re-engineer PRESAGE from a "proof-of-concept" prototype to a robust and reliable system. Most significantly, this will involve re-writing the whole database access system, comprising most of PRESAGE except the user interface. In addition, several specific new aspects are planned, including customized systems for data collection (designed in collaboration with structural genomics researchers); family neighboring facilities; broader data collection; and flexible query systems with parseable output.